Exclusion of Molecules from Micropores of Solid Adsorbents

A theory encompassing steric exclusion and surface heterogeneity will be formulated for mixed gas adsorption on microporous solids such as zeolites and activated carbon. The theory contains experimentally determined fractional exclusion constants. Besides the theory, three additional studies based on the theory are undertaken: (1) characterization of microporous solids; (2) extension of the theory to adsorption of liquid mixtures; and (3) development of a simple, rapid gravimetric technique for measuring mixture adsorption. Successful conclusion of the study would lead to a major advance in adsorption theory.